Supporting Instructors to Embed Design Thinking in Digital Fabrication Courses

Manufacturing and engineering industries face a looming gap in skilled workers, with an estimated 2.4M positions projected to go unfilled by 2025. This project aims to help fill this gap by improving the preparation of the needed technical workforce. To do so, it will establish a Professional Learning program in design thinking pedagogy for secondary and postsecondary educators. The curriculum will focus on design thinking projects that involve digital fabrication techniques, including 3D printing, laser engraving, and Computer Numerical Control milling. The Professional Learning program is expected to improve the educator' teaching practices and enable them to update existing curricula and lesson plans to better align with industry relevant skills and techniques. The project also intends to create a community of practice around design thinking in digital fabrication that will build a beneficial network among secondary teachers, community college faculty, makerspace educators, and regional employers. It is expected that the project will support 36 secondary and postsecondary educators who will teach more than 3,000 K-12 and undergraduate students in the northern Virginia region. These students will have greater interest in and be better prepared for technical careers in manufacturing and engineering.

The overarching goal of the project is to use Professional Learning to move digital fabrication instruction beyond the reproduction of simple objects. Instead, the project will train educators to use pedagogy and cognitive strategies to embed design thinking into their digital fabrication lessons and courses. As a result, students will learn to use design thinking to build complex, useful objects. The project’s specific aims include to: (1) create a professional learning institute; (2) host digital fabrication summer camps at NOVA and the Boys and Girls Club of Greater Washington; (3) host a semiannual design and digital fabrication challenge; and (4) establish an online resource library of projects and lesson plans created and refined by educators in the community of practice. The project is expected to advance: understanding of the pedagogies that help to develop student interest in manufacturing and engineering; the capacity for Professional Learning to facilitate integration of design thinking into classrooms and makerspaces; and the extent to which a capstone design challenge may foster sustainable change in instructional practices. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.